Quantum Dot Lasers for Long Wavelength Radiation

9628973 Bhattacharya There is a need for long wavelength, or terahertz, sources for a variety of applications. In general such sources have been realized with small bandgap semiconductors and more recently with intersubband transitions in quantum wells. In general, if intra-band population inversion is to be created in a quantum well by carrier injection at the barrier energy, it is necessary that the electron intra-band energy relaxation times are long. Additionally the bandedge electron-hole recombination times should be short. The use of sub-2 dimensional structures (quantum dots) allows us to increase the intra-band energy relaxation time from about a picosecond for bulk or quasi-2 dimensional systems to several hundred picoseconds at room temperatures. Furthermore, by placing these structures in a high coherent photon density optical cavity, it is possible to decrease the bandedge electron-hole recombination times through stimulated emission. Our theoretical studies show that strong population inversion and gain are possible at room temperature with such systems. We will carry out careful experimental studies to fabricate quantum dot structures to realize these concepts. We have already demonstrated the fabrication of buried quantum dot waveguide structures. We expect the devices to produce radiation in the range of 10^13 to 10^14 Hz. ***